Improving the Robustness of Cluster-based Network Services Using Peer-to-peer Design Principles

Cluster-based network servers are a cost-effective platform for
constructing
large-scale network services. However, service clustering presents
significant
challenges to system designers. Many components of the clustering
support are
often implemented using centralized or hierarchical architectures, in
order to
meet desired performance, consistency, and policy requirements. The
effectiveness
of these approaches has been demonstrated under well-controlled
environments,
but customized enhancements are often needed to deal with transient
component
failures and fluctuating service loads.

Peer-to-peer systems are distributed systems without any centralized
control
or hierarchical organization, and with functionally equivalent software
running
at each node. The primary goal of this project is to improve the
robustness of
cluster-based network services using peer-to-peer system design
principles.
Specifically, this effort exploits three main principles of peer-to-peer
system
design: functionally symmetric architecture, slow-scaling overhead, and
non-determinism. This project covers various components in service
clustering
support, including service location lookup, membership management,
cluster-wide
resource management, and replication consistency support.

Techniques investigated in this project can greatly benefit network
service
designers, for whom it can offer significant improvements in system
robustness.
In a broader context, this research complements the ongoing efforts of
building
global-scale peer-to-peer systems and services. In addition, this
project
directly benefits systems-area instruction improvement at the PI's
institution.